Research Initiation: Thermomechanical Treatment of Moving Metal Strips in Rolling Processes

A combined experimental and numerical research program is proposed to study the thermo-mechanical treatment (TMT) of moving metal strips in rolling processes. TMT using controlled cooling has been adopted to improve product quality and to reduce production cost. However, very little information is available on the heat transfer behavior of the cooling process. Therefore, this research is initiated to study the thermal behavior of strip rolling. Particular emphasis is placed on the measurement of the local convective heat transfer coefficients for jet boiling on moving strips. Three cooling systems will be investigated and compared: spray cooling, laminar jets, and water curtains. Surface thermocouples and thin film heat flux gages with fast response times (on the order of microseconds) will be used to measure the instantaneous surface temperatures and heat fluxes. Finite difference methods will be developed using Eulerian and Lagrangian approaches to analyze data and to predict strip temperatures in rolling conditions. The effect of strip material, strip temperature, and moving speed as well as the jet velocity and jet configuration on the local heat transfer coefficients will be investigated. Controlled cooling technology has recently been developed to perform on-line thermo-mechanical treatment (TMT) of the strips on the run out tables of hot-strip-mills. The result is a continuous process for producing high quality products in the as- rolled conditions. At present, however, the cooling system design is primarily based on a trial-and-error approach because the heat transfer behavior is not well understood. A better understanding of thermal and mechanical behavior of the strip cooling processes as described in the proposed research is needed.